IDP: EFFECT, Equation for Future Equity in Curriculum and Technology

Project EFFECT is a technology and curriculum based project promoting the recruitment, retention and success of undergraduate women in the academic and professional fields of science, engineering and mathematics. Project EFFECT will use a multi-faceted approach, building upon existing work at Washington State University. The project will empower women as they strive to succeed in the existing university structure and will facilitate the process of effecting permanent change toward equitable pedagogical techniques in SEM courses. Empowerment will be achieved through a dual effort consisting of a Bridge Program designed to give women a fast-start in their academic careers complemented by either a concentrated series of technology seminars, or a course specifically designed to equip students with critical survival skills, including technological skills, self awareness and self-confidence. University faculty and graduate students will be involved in Innovation Workshops designed around pedagogically sound practices that create equitable learning environments for all constituents. Research projects will be conducted in conjunction will all facets of the project. All materials developed should be replicable at other institutions.